Fragment Caching to Improve Distributed Access

National Science Foundation
Distributed Systems Research
CISE/CNS

ABSTRACT
PROPOSAL NUMBER: 0410524
PRINCIPAL INVESTIGATOR: Nadeau, David R.
INSTITUTION: Fragment Caching to Improve Distributed Access
PROPOSAL TITLE: University of California-San Diego

Enabled by dramatic improvements in compute power, network bandwidth, disk capacity, and digital sensing devices, the last decade has seen the emergence of massive scientific data sets archived in data repositories scattered across the country. Few sites have the capacity to copy an entire data set to local storage prior to analysis or visualization. In-stead, this work explores distributed access strategies to enable remote applications to query and receive on-demand delivery of relevant fragments of large data sets. Integrated into a data grid that manages distributed data collections, these strategies monitor appli-cation access patterns and pre-fetch and cache needed portions of a data set, delivering to the remote application only the data that is needed, as it is needed. The approach is simi-lar to virtual memory paging systems found in operating systems, but uses knowledge of the spatial and temporal structure of data sets and the application's observed access pat-terns to efficiently pre-fetch, format, cache, and deliver the data. The results of this work enable distributed access to data sets far larger than local storage resources would other-wise allow. Network bandwidth is used more efficiently by transferring only the data that is needed, and local storage is used only as a cache for frequently used portions of a data set. Expected results of this work include predictive pre-fetch algorithms, cost mod-els, and a prototype implementation whose usefulness will be validated by its application to several real-world problems involving distributed access to enormous data sets.

Dr. Brett D. Fleisch
Program Director, CISE/CNS
June 23, 2004.
.